I-Corps: Translation Potential of a Scalable Sensor Fusion for Critical Infrastructure Drone Defense

This I-Corps project is based on the development of a multi-sensor platform for detecting, identifying, and tracking unmanned aerial vehicles (UAVs) in low-altitude airspace. As drone adoption accelerates worldwide, inexpensive consumer UAVs costing only a few hundred dollars can disrupt airport operations, threaten critical infrastructure, compromise public safety, and cause significant economic losses, creating a growing need for reliable and scalable airspace monitoring solutions. Existing systems often rely on expensive standalone radar installations or individual sensing technologies that can be difficult to deploy broadly, generate false alarms, and provide limited situational awareness. This technology combines multiple sensing approaches with existing wireless infrastructure to deliver persistent, cost-effective airspace awareness across distributed environments. This may improve the detection of unauthorized or unsafe drone activity and has the potential to enhance public safety, strengthen critical infrastructure resilience, and reduce operational disruptions.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of a multi-modal sensing platform for unmanned aerial vehicle (UAV) detection and tracking. The technology integrates passive radio frequency (RF) sensing, radar, cameras, remote identification signals, and 5G integrated sensing and communications (ISAC) technologies. It leverages existing wireless networks and signals of opportunity as distributed sensing resources, enabling radar-like situational awareness capabilities while reducing the need for dedicated sensing infrastructure and additional spectrum allocation. Advanced sensor fusion algorithms combine measurements from multiple modalities to improve detection reliability, localization accuracy, and threat assessment performance in complex operating environments where individual sensors may fail. Proof-of-concept results and field experiments have validated key sensing modalities and demonstrated the feasibility of integrating heterogeneous data sources into a unified operational framework. This technology may provide a scalable airspace monitoring solution to track UAVs.